1998 Cold Spring Harbor Laboratory Conference on Mouse Molecular Genetics to be held September 2-6, 1998 in Cold Spring Harbor, NY

Grodzicker 9804936 The Mouse Molecular Genetics Conference will be held at Cold Spring Harbor Laboratories, September 2-6, 1998. The meeting will bring together a diverse group of scientists of different professional ages who use the mouse to study aspects of mammalian genetics and development. The use of the mouse as a model system for understanding normal developmental and genetic processes has increased dramatically over the last few years. This eleventh annual meeting will provide a format for the exchange of ideas and information among both junior and senior scientists.